PMSA: "STEP: Student and Teacher Excellence Program"

PMSA-9453838 Newport News Public Schools Newport News, VA Woods, Thomasena and Dianne Robinson "STEP: Student and Teacher Excellence Program" STEP (Student Teacher Excellence Program) brings an urban school district and a broad-based partnership of community organizations and federal labs to develop a model of comprehensive Pre-K-12 science and math education to boost minority achievement and significantly increase minority representation in the college-bound SEM pipeline. STEP is collaborative venture of partners newport News Public Schools, NASA-Langley Research Center, CEBAF (the Department of Energy funded Continuous Electron Beam Accelerator Facility), Hampton University, CHROME (Cooperating Hampton Roads Organizations for Minorities in Engineering), and the Virginia Living Museum, working with universities, exceptional informal science organizations and high-tech industry. STEP will produce a model that incorporates the tremendous expertise and creativity of the unique concentration of resources in this area and that can be replicated by communities not so fortunate as to have such resources nearby. Newport News is a minority-majority urban system in Southeast Virginia. About 55% of the students are minorities, most African- American. STEP will address current inequities: African-American students, on average, score well below white students on standardized tests of math and science achievement and are much less likely to take advanced math and science courses. The STEP program is closely tied to the School Board's priorities of reducing racial disparities in achievement, channeling more minority students into advanced classes, and ensuring that all graduates complete Algebra. STEP also is directly linked to the City's economic growth strategy focusing on high and applied tech industries. STEP is a system-wide initiative and will involve all 30,800 students in the city's 29 elementary schools, 7 middle schools, 4 high schools, and Governor's School for Science and Technology. Consistent with PMSA goals, the emphasis will be on minority students, but ultimately all students will benefit from the accelerated standards, enriched education program, and upgraded teacher skills.